Industry/University Cooperative Project: Diffusion and Relaxation in Polymer Systems

This project is a study of molecular diffusion in homogeneous polymer-solvent systems. The main thrust of the work is an investigation of transport processes which occur when there is coupling between molecular migration and polymer chain relaxation. This coupling phenomenon results in "anomalous" diffusion effects which ave excluded a fundamental understanding of many processes which involve polymer-solvent interactions. A newly developed oscillatory sorption technique is utilized to study the coupling of diffusional transport and relaxation which is unique to polymer-solvent systems. This is the only experimental technique available which permits an unambiguous investigation of this phenomenon. The experimental results are used to formulate constitutive equations to describe diffusional fluxes taking place under conditions where migration and polymer chain relaxation are interacting.